Tunable Plasmonic Devices Enabled by Holographically-Formed Polymer Dispersed Liquid Crystals

Tunable Plasmonic Devices Enabled by Holographically-Formed Polymer Dispersed
Liquid Crystals

Abstract
Objective: The goal of this project is to address the challenge for the design and fabrication of
tunable plasmonic devices through the electrical tuning of refractive index in holographicallyformed
polymer dispersed liquid-crystals (H-PDLCs). Both tunable plasmonic nano-antennas
and reconfigurable surface plasmon polariton (SPP) devices will be investigated using
transformation optics and cellular liquid crystals. The resulting tunable plasmonic devices will
feature fast tuning speed and flexible function for practical applications.
Intellectual Merit: The proposed tunable plasmonic devices rely on the H-PDLCs, which
feature electrical tuning capability and can be fabricated by the nano-fabrication technique. This
is in contrast to the conventional plasmonic devices that are usually non-tunable, which has
limited their applications in optical systems. Moreover, the proposed uniform and gradient index
H-PDLCs provide us with large flexibility in designing different tuning structures. Combining
these structures with device design techniques will lead to many new tunable plasmonic devices.
Broader Impact: The successful design and fabrication of proposed H-PDLC based tunable
plasmonic devices will have a large impact on future optical systems for uses in both civilian and
military sectors. Especially, they will find applications in the areas of sensing, imaging, energy
harvesting, and communication systems. Other areas of impact include the following: (1)
enhancement of optical devices research and education experiences for student researchers; (2)
increased participation of high school students, and underrepresented groups in science and
technology; (3) rapid dissemination of research results through workshops, seminars, and
publications.